CAREER: Modeling and Applications of Expression-targeted Gene Delivery

W. Godbey
0846395

The first goal of the proposed project is to investigate expression-targeted gene delivery and derive a model to predict its effectiveness in a variety of situations. This model will provide a better understanding of the technology, which will enable the applicant to rationally design gene therapy constructs that will be of high value to cancer research. The project will then focus upon preliminary applications of expression-targeting. The concept of expression-targeted gene therapy was an incremental advance for transitional cell carcinoma gene therapy, for which the principal investigator has been a leader (patent 20050187177, pending). This transformative concept will be investigated further with the goal of creating a method for cancer screening as well as a potential treatment for transitional cell carcinomas. In a third application of the technology, cells will be engineered to utilize novel signaling cascades. Ancillary benefits of this cellular engineering objective will be the elucidation of basic biologic principles.

The model mentioned above will lead to transfection procedures for which the levels of transgene expression can be controlled. This control will offer a level of variability that will be managed by physiological circumstances within the body. This integration of engineering and life science would advance fundamental knowledge and have a significant impact upon the biomedicine industry. The PI integrates research and teaching and is involved in several outreach programs, including giving K-12 scientific demonstrations to diverse student bodies. A program will be developed to promote community involvement for undergraduate students.